Collaborative Research: CMG: Multi-scaling Random Fields and Pollution Migration

The properties of groundwater aquifers are uncertain at almost all
physical locations. Only a small fraction of an aquifer can be sampled
and tested. Some statistical model must be chosen and implemented that
describes the distribution and correlation structure of the parameters
(primarily the hydraulic conductivity) that control the motion of
groundwater and dissolved pollutants. Based on the statistical model,
replicas of the aquifers are constructed to make predictions of flow and
transport. These replicas must contain the structures that may be
present across all scales of interest. The replicas should honor the
real data where measured (including a possibly non-Gaussian
distribution), and should represent correlation that might be restricted
to very narrow directional windows; for example, discrete fracture set
orientations. The investigators are working on one model that can honor
the data from many well-studied aquifers (granular and/or fractured).
The model uses operator-fractional noise and motions, since the scaling,
or fractal, properties of aquifers vary with direction. The operator
fractional motions are based on the investigators' recent definitions of
3-D fractional integro-differentiation. The operator-fractional motions
have what is known in the earth sciences as "generalized scale
invariance" in which the index of scaling depends on direction. The
investigators are rigorously defining the mathematical properties of
these motions and their numerical implementations. They are also
studying the correspondence between transport through the
operator-fractional aquifer replicas and simple analytic descriptions of
transport embodied in fractional-order transport equations and
generalized continuous time random walks.

The spreading of pollution in an aquifer is controlled by sediment
structures that are present across a huge range of scales. Tiny bits of
silt and clay may retain pollutants for years, while buried (remnant)
gravelly stream channels might move some pollutants for miles in a short
time. To make realistic predictions of drinking water vulnerability or
eventual cleanup, it is important to construct models of aquifers that
have this kind of multi-scale structure. In another setting more
germane to nuclear waste storage, the simultaneous presence of small and
large fractures will account for both the slow and fast pathways for the
spreading of radioactivity away from future repositories.
Representative models of these aquifers must be "buildable" and
testable, so the investigators are first pouring a concrete mathematical
footing. While the work deals primarily with mathematics and hydrology,
the results also contribute to applied studies in physics, fluid
dynamics, electrical engineering, and finance. The financial
applications are revealed when looking at a graph of a stock price:
there are minute-to-minute fluctuations that are similar to year-to-year
gains and losses. Some stocks are tightly coupled; others are not. Not
all markets respond at the same rate, nor are the magnitudes of the
changes easily characterized. Finally, several graduate students and a
post-doctoral researcher are also supported by the grant. Each of them
is receiving extensive training in both physical sciences and
mathematics. This cross-training engenders more fruitful cooperation
between the theoretical and applied sciences.